Mathematical Sciences Computing Research Environments

9406327 Hammer RUTCOR, Rutgers Center for Operations Research at Rutgers University, The State University of New Jersey will purchase high capacity computing equipment which will be dedicated to the support of research in operations research. The equipment will be used for several research projects, in particular for solving large scale satisfiability problems, for developing efficient algorithms in logic minimization, for implementing interior point algorithms for large scale linear and nonlinear programming problems, and for the solution of very large scale specially structured linear programming problems.